Meeting The Challange: Calculus Renewal A Live Teleconference

California State University, Office of the Chancellor, proposes to hold a national video conference in October, 1993. This would be the fourth in a series of similar conferences offered in April, 1992, March and April 1993. This conference is directed toward teachers of Calculus. Its intent is to inform teachers of Calculus about new curricula and approaches to teaching and learning in an environment of reform. Examples of successful Calculus programs will be shown and individuals in sites around the country will participate by two way audio between the site and Long Beach, CA, the origination point of the video signal. A marketing plan includes promotion, registration, advance materials, self assessment tools, evaluation and follow-up.//